Mathematical Sciences: Workshop-Pathways to the Future

This is a small workshop of women researchers in statistics who have received their doctorates in the last five years. The workshop will be held immediately prior to the Annual Meeting of the Institute of Mathematical Statistics and its Special Symposium on Probability and its Applications. Each workshop participant will give a brief introduction to her area of research interest and describe her reseach environment. The opportunity to meet and interact with each other as well as with a few established women researchers will be invaluable as the participants learn to promote their own research and to decrease their professional isolation.